Mathematical Sciences: Automorphic Representations, L-Packets and Theta Liftings

This award supports the research of Professor J. Rogawski to work in automorphic functions. He intends to work on the relations between L-packets and theta liftings for unitary groups. He intends to first study the quasi-split unitary group U(3) and then try to extend these results to general unitary groups. Modular forms arose out of Non-Euclidean geometry in the middle of the nineteenth century. Both mathematicians and physicists have thus long realized that many objects of fundamental importance are non-Euclidean in their basic nature. This field is principally concerned with questions about the whole numbers, but in its use of geometry and analysis, it retains connection to its historical roots and thus to problems in areas as diverse as gauge theory in theoretical physics and coding theory in information theory.